Representation Theory and Automorphic Forms

Abstract
Speh/Barbasch

This proposal is concerned with the study of automorphic forms,
representations of reductive groups and their applications.
Dan Barbasch, together with various coworkers, is proposing to
continue investigations of the unitary dual of real and p-adic
groups. In particular he will study necessary conditions for
unitarity. He will also continue the study of unipotent
representations, in particular their associated cycles. Joint with
various coworkers he will study occurences of representations in the
dual reductive pairs correspondence, and for p-adic groups he will
study the Bernstein center. Birgit Speh, together with
various coworkers, will continue the study of cohomology of locally symmetric
spaces. In particular she will study representation theoretic
descriptions of modular symbols. She will also work on proving
uniform convergence of terms in the Arthur-Selberg trace formula.
It is expected that the results of this proposal
will contribute significantly to the understanding of the geometry and
topology of locally symmetric spaces. Graduate and undergraduate students
as well as postdoctoral faculty are expected to be involved in studying
problems generated by this research.

Many problems in number theory and mathematical physics are concerned
with functions that are solutions to differential equations which have
certain symmetry properties. These properties are expressed in
mathematics as saying that the solutions form a unitary representation
of a reductive group. A major part of this proposal is concerned with the
determination of the building blocks which are called
unitary irreducible representations. The aforementioned functions
relevant to number theory are called automorphic functions and have
expansions in terms of unitary irreducible representations. These
expansions can be thought of as generalizations of classical Fourier
series. The problem of convergence of these expansions is important
for applications to number theory, and forms an important component
of this proposal.